Workshop: Defining Hydro-Ecological Research Priorities

Abstract

0108832
Richter

Defining Hydro-Ecological Research Priorities

This workshop will bring together 20 riverine scientists in July 2001 to focus on linkages between river flow regimes and biota. The workshop has a science focus, and will precede a large conference entitled Managing River Flows for Biodiversity. Objectives of the workshop are to: 1) identify key knowledge gaps and 2) develop a prioritized research agenda. The organizers, Dr. Richter of the Nature Conservancy and Dr. LeRoy Poff of Colorado State University, plan to host an electronic forum among participants in advance of the workshop. The product of the workshop will be a white paper posted at the conference web site identifying critical uncertainties and knowledge gaps and research priorities. The workshop report will also be published as part of the conference proceedings.